International Conference on Language & Development, The Caseof India, January 5-11, 1988, Hyderabad, India, Award in Indian and U.S. Currencies

Description: This project is to support U.S. participation in the International Conference on Language and National Development to be held in Hyderabad, India, January 5-11, 1988. The collaborating institutes are Osmania University and the University of Hyderabad, India. The focus of the conference is the case of India, namely: to assess the legislative and administrative changes brought about in the roles of modern Indian languages and English since independence; estimate the level and extent of use of major regional languages; the work of various agencies involved in language development, compare the mechanisms and processes underlying the evolution of new registers and styles in major languages, evaluate the issues related to language conflicts and to compare cross-cultural and cross-linguistic models of languages and national development from other parts of the world. The conference proceedings will be published. Scope: The conference has the potential of making a contribution to the infrastructure of the science of linguistics, and to the furtherance of the field of sociolinguistic studies related to India. It is likely to be of benefit to both developed and developing countries with multi-lingual populations.